West Antarctic Volcano Exploration (WAVE)

West Antarctic Volcano Exploration (WAVE) is an international cooperative program in which the U.S., U.K., and N.Z. scientists will study Marie Byrd Land volcanoes. Geochemical, tectonic, and glacio-volcanic problems will be investigated using detailed field work, geochemical and isotopic analyses and dating, scanning electron microscope, studies, and paleo- and rock- magnetic analysis. These detailed field studies will re-evaluate models of glacio-volcanic history. Marie Byrd Land, Antarctica, one of the world's largest alkali volcanic provinces, contains a unique record of the Late Cenozoic glacio-volcanic history of Antarctica. However, much of this record is known only from reconnaissance studies.